Nature of Two-dimensional, Surface and Bulk Phase Transitions in Liquid Crystals

Involves adiabatic calorimetric studies of free standing liquid crystal films. A new free-standing film oven with enhanced sensitivity will be built, and various measurements made on liquid crystal compounds with different phase transitons.